Young Scholars Research Program

9353868 Brinker The State University of New York at Binghamton seeks to initiate a six-week residential Young Scholars Project in chemistry for 20 studends entering grades 11 and 12. Students will be provided the opportunity to broaden their view of the numerous career opporltunities in the sicences and related fields by exposure ot a wide variety of seminar topics, laboratory activities, university interactions and industrial experiences. Students will have an excellent and unique opportunity to become an integral working member of an active research team.